Seismic Probes of the Solar Magnetic Field

Zweibel, Ellen 95-21779 Dr. Zweibel will study how the presence of a magnetic field affects the oscillation spectrum. She will try to develop both forward and inverse methods to allow specification of the magnetic field and to allow magnetic field effects to be distinguished from temperature or velocity effects. ***